Mathematical Sciences: Topics in Iwasawa Theory

Professor Jones will work on the Iwasawa theory of elliptic curves. He intends to study problems related to Iwasawa L- functions of l-adic representations. He will also study equivariant cohomology with a view towards finding analogues of flat duality theorems. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.